Isospin Symmetry and Core Polarization in Z=8 and N=8 Single Closed Shell Nuclei

This project involves Earlham College undergraduates in the study of
differences in proton and neutron behavior in exotic nuclei. Proton
and neutron contributions to excited states can be disentangled by
comparing experimental measurements that have different
sensitivities to protons and neutrons. The advent of radioactive
beam technology has enabled such investigations of nuclei away from
stability via inverse kinematics proton scattering, electromagnetic
lifetime measurements, and Coulomb excitation. The focus of this
project is on collective excitations in N=8 and Z=8 single closed
shell nuclei. Three measurements are planned, a gamma-ray lifetime
measurement of the first excited state of Ne-18 at Florida State
University (FSU) and inverse kinematics proton scattering
measurements of the first excited states of Neon-18 and Oxygen-22 at
the National Superconducting Cyclotron Laboratory (NSCL). The
project will span three years and involve one to two students for
8-10 weeks per summer. Participants will to travel to the NSCL or
FSU to perform experiments and will analyze the data at Earlham.